CEDAR Class 1 Imaging Spectroscopic Facility for Optical Remote Sensing of Airglow and Auroral Processes in the Polar Middle Atmosphere and Thermosphere

9402061 Sivjee The PIs propose to build a CEDAR Class I high throughput imaging spectroscopic system for ground-based remote-sensing of polar middle and upper atmosphere airglow and auroral processes at the Polar Cap Observatory site in Resolute Bay. The new optical facility will have "Class I instruments" capable of attaining CEDAR goals of using "state-of-the-art technology to achieve greater sensitivity, better spatial and temporal resolution and new measurement capabilities." Among the many aeronomic research projects that can be undertaken (with greater accuracy and spatial as well as temporal resolutions) are: (1) derivation of N and O densities in the thermosphere, and (2) investigation of the excitation mechanisms for highly dynamic transient phenomena such as type-B red aurora. ***